Support for the 1992 Gordon Research Conference on "Separation and Purification" to be held on August 10-14, 1992

This proposal requests travel support for participants at the 1992 Gordon Conference on Separation and Purification. The conference will have separate sessions on adsorption, membrane separations, bioseparations and separations related process modelling, and sessions on environmental applications and new commercial processes.